Optimal Bounds for the Characteristic Frequencies of Vibrating Membranes

This Science in Developing Countries award will support the research collaboration of Professor Mark Ashbaugh of the university of Missouri, Columbia, and Professor Raphael Benguria of the Pontificia Universidad Catolica de Chile. The project aims to solve conjectures related to the mathematical dimensions of circular drums. The researchers propose to develop good bounds for the ratio of the first overtone to the fundamental tone in "warped" drums, which span a closed curve in three- dimensional space. They will also consider other types of surfaces, such as a piece of a sphere's surface, which are of great importance to the geometry of curved surfaces. Through techniques used in earlier collaborations, the investigators will examine bounds for ratios o other tones as well, in order to improve existing bounds and perhaps obtain the optimal bound, along with the shape that gives the optimal result. The research is expected to yield substantial contributions to the general area of eigenvalue bounds for differential operators. The u.S. side will gain from continued collaboration with a Chilean expert in this area. The Chilean side will benefit from continued direct participation with a U.S. counterpart.